REVSYS: Classification of Loxandrini and Species-level Revisions of Feronista, Australian Loxandrus and New World Oxycrepis and Stolonis (Coleoptera: Carabidae)

This project will develop a classification and monographically revise
species and higher-level groups of a tribe of beetles distributed in
Australia, and the Americas. Over 100 new species are expected to be
described in these taxa. The study will combine morphological and
molecular analysis to produce taxonomic hypotheses, generic and species
(re)descriptions and diagnoses, full illustrations for internal/external
features, species range maps, habitat data, identification keys for
genera and species in both internet/CD based and traditional printed
forms, internet accessible specimen data and genus/species web pages.
All Australian loxandrine species will be revised and described and
tools for identification will be provided for non-specialist. This group
of beetles will then be available for consideration in conservation
planning.

The focus taxa of this study are a group of Australian Carabid beetles
and this work will be the first major carabid clade in Australia to
undergo cladistic analysis and modern classification. Australia is
essential to our understanding of worldwide distribution patterns and
these beetles are a good model taxon for such studies. In terms of
evolutionary significance, this study will investigate reproductive
biology and predator avoidance by chemical defense. Using the
phylogenetic hypothesis and ecological information, the history of how
defensive compound changes have occurred in this lineage will be brought
to light.

This revisionary syntheses in systematics proposal for loxandrine
carabid beetles will bring together data for specimens from major
collections worldwide and then return to these collections sorted,
identified and databased specimens. Distributional and life history
data, and web-based and standard published tools for identification will
be made available to all biologists. Monographic revision of these
genera and the tools to identify specimens will allow non-systematist to
identify these taxa and assess their occurrence in both ecological and
historical terms. This will be a significant advance for a set of taxa
presently completely unavailable for study.

The project integrates graduate and undergraduate students throughout by
training them in field studies, specimen collection, preparation, insect
morphology, sequence acquisition, data collection and phylogenetic
analyses. Undergraduates will gain experience working in laboratory
facilities and museum collections and will learn basic identification
and insect morphology. Graduate students will be fully integrated into
museum research, specimen collection, dissection, morphological and
sequence analyses and development and implementation of web resources.